Spin-Dependent Transport in Magnetic Nanostructures and Heterostructures

0071823
Petukhov
This theoretical research award supports work to explore spin-dependent tunneling and hopping conduction in semiconductor-based magnetic nanocomposites and heterostructures. If successful, the research will facilitate the development of novel quantum devices which merge magnetism with semiconductor technologies. Three projects will be done: (1) theoretical studies of non-coherent spin-dependent transport in nanocomposites of GaAs/Rare-Earth-Group-V and GaAs/Mn-based compounds, as well as III-V and IV-VI-based dilute magnetic semiconductors with a random and clustered distribution of magnetic ions; (2) a theoretical study of coherent spin-dependent transport in confined magnetic structures such as magnetic quantum wells and quantum dots, e.g., ErAs or GaMnAs quantum wells in GaAs, and ErAs, MnAs or MnGa quantum dots in GaAs; first-principles electronic structure calculations of bulk and confined magnetic materials and their interfaces with III-V semiconductors.
%%%
This theoretical research will explore properties of magnetic materials and behavior integrated with semiconductors in the form of quantum dots and heterostructures. While providing a rich field of fundamental phenomena, these materials hold great promise for device applications.
***